PostDoctoral Research Fellowship

This award is made as part of the FY 2023 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Eric Thoma is “The Coulomb Gas, Membrane Model, and Statistical Physics". The host institution for the fellowship is Stanford University, and the sponsoring scientist is Amir Dembo.